Aggregation and Adsorption Interdependence in Heterogeneous Systems

Research on conditions that affect the aggregation of particles in water and the effect of this aggregation on their adsorptive behavior toward substances in solution is performed. The effects of adsorbate concentrations. solid-liquid ratios, pH, ionic strength, and particle morphology on the interdependence of aggregation and adsorption is studied. The results of this research may be applied to improvement of mathematical models used in environmental engineerng practice for predicting potential impact of pollutants on natural bodies of water.